Computable Mathematics

In this project the principal investigator will apply methods from
computability theory and other branches of logic and theoretical computer
science to study the effective content and proof-theoretic strength of
various areas of mathematics. In particular, he will concentrate on
effective randomness, computable model theory, and reverse mathematics and
effectiveness of combinatorial principles. He will study the relative
randomness of reals, using methods from computability theory and
algorithmic information theory, concentrating in particular on the
K-trivial reals, a natural class of reals that are far from random with
with many compelling properties and applications. In computable model
theory, he will continue the development of methods to address issues
raised by effectivizing model-theoretic notions, including the
relationships between the different ways that a given structure may be
effectivized; the relationships between the degree of effectivity of
different models of theories with few models; and the degrees of special
models, such as prime, homogeneous, and saturated models, of complete
decidable theories. He will also study computability-theoretic and
proof-theoretic aspects of combinatorial principles such as versions of
Ramsey's Theorem and principles related to partial and linear orderings,
exploiting the connections between effective mathematics and the reverse
mathematics program.

The study of the effective content of mathematics has received increasing
attention in the last few decades. It is a natural outgrowth of the
efforts to understand and formalize the notions of algorithm and
computable function undertaken in the early part of the twentieth century.
It is of both pure mathematical and foundational interest, and has
important connections with computer science. This project aims to further
our understanding of how structure affects computability, and how
computability interacts with other fundamental notions of modern
mathematics and foundations of mathematics, such as randomness and
proof-theoretic strength. Computability theorists have developed a highly
successful theory of relative computational complexity of sets of numbers,
which, in addition to its intrinsic mathematical interest, has been
influential in theoretical computer science. One of the goals of this
project is to continue the development of an emerging parallel theory of
relative algorithmic randomness, which can act as a theoretical framework
in which to consider questions such as: When should we say that an
infinite set is more random than another, and what consequences does the
relative randomness of sets have for their relative computational
complexity?